A Study of the Outer Shelf, Shelfbreak Front, and Slope from Long-Term ADCP and Hydrographic Observations from MV Oleander

0117653

Wang/SUNY-SB

This project will analyze data from repeated transects across the
continental shelf and upper slope off the East Coast of the U.S. These
will be used to study the structure and variability of the shelf-break
front and the flows on either side of this front. The data consist of
over 700 sections of ADCP data, collected over approximately 9 years from
a container ship making routine trips between New York and Bermuda,
together with XBT data spanning two decades. In addition to providing
information about the short-term variability of the circulation in this
region, this unique data set should permit the study of the inter-annual
variability of a current system that affects conditions in the
economically important and biologically